NUE: Enhanced Undergraduate Nanotechnology Education with Haptic and Visualization Tools

This Nanotechnology Undergraduate Education (NUE) in Engineering program entitled NUE: Enhanced Undergraduate Nanotechnology Education with Haptic and Visualization Tools, under the direction of Dr. Gary Bertoline, Purdue University, aims at enhancing student knowledge, understanding, and attitudes towards nanoscale science, engineering, and technology by developing course modules that utilize haptic (force-feedback) and visualization tools developed by an interdisciplinary group of researchers. A series of learning modules for a sophomore Electrical and Computer Engineering course for undergraduate engineering students will be developed that utilizes advanced visualization and haptic technology to help students "see" and "grasp" phenonmena at the nanoscale that are otherwise difficult to comprehend using the traiditional textbook medium.